Genetic Analysis of Long Distance Enhancer - Promoter Interactions

9404771 Abstract Clues to the mechanisms of long distance activation have come from the gypsy retrotransposon of Drosophila. Several naturally- occurring mutations are gypsy insertions into gene control regions. The unique feature of these mutations is that the enhancers that are promoter-distal to gypsy do not activate transcription while enhancers promoter-proximal to gypsy still function. This position-dependent blocking of enhancers by gypsy is suppressed by mutations in the suppressor of Hairy-wing su(Hw) gene. The su(Hw) gene encodes a zinc finger protein (SUHW) that binds to gypsy DNA. Only the SUHW-binding region of gypsy is required to block enhancers, demonstrating that SUHW is the enhancer-blocking agent. SUHW can be used, therefore, to investigate enhancer- promoter interactions. It is postulated that SUHW interacts with the factors that support long distance interactions between enhancer-binding factors and the promoter. Gypsy insertion alleles of cut partially suppressed by leaky su(Hw) alleles have intermediate cut wing phenotypes. Mutations in other genes that modulate these intermediate phenotypes will be generated and mapped. Both dominant suppressor and enhancer mutations that are not su(Hw) or cut alleles have been isolated in preliminary experiments. These mutations will be tested for the ability to modulate other SUHW-blocked transcription enhancers. Genes that modulate the activity of more than one gypsy-blocked enhancer without affecting expression of su(Hw) will be cloned after generating breakpoint or P element insertion alleles. The effects of the mutations on gypsy insertion allele phenotypes, additional phenotypes associated with the mutations, and the identities of the encoded products will be used to assess the roles of the genes in long distance activation and to formulate molecular models. %%% Many genes in higher eukaryotic organisms contain control regions with multiple enhancers that activate transcription in dif ferent tissues and stages of development. In some cases, enhancers are many kilobases away from the promotor. The ability to activate over such long distances is not an intrinsic property of the activator proteins and promoters. We will characterize this phenomenon in the fruit fly, Drosophila, by finding appropriate mutants and analyzing their effects on long distance activation of genes. ***